Diode Array Spectrophotometers for Rapid Kinetics

93525502 Woods Diode Array Spectrophotometers for Rapid Kinetics The project will purchase diode array spectophotometers to measure sapid knetics in the undergraduate biochemistry course. New experiments will be centered about enzymatic kinetics with data collection required at less than second intervals. The rates of formation and degradation of reactants, intermediates, and products will be determined. ***y